RUI: Research in Dynamical Systems with Singularities

Abstract for DMS - 0103882

The proposed research program seeks to gain a deeper understanding of
the dynamical phenomena of non hyperbolic systems with singularities.
The main goal is to investigate the interplay between dynamics and the
growth and structure of generating groups, the number theoretic
properties of the defining parameters, and the topology and geometry of
restricting domains and the induced symbolic dynamical systems.
The scope of the program includes generalizations of interval exchanges,
polygonal dual billiard maps, piecewise isometries.

This program is in dynamical systems, an active area of mathematics
whose main objective is to study long term behavior of objects under
applications of the same mathematical principle. Apart from applications
in other areas of mathematics, the proposed program will have
implications in Electrical Engineering, in particular in digital
filters. Digital filters, are algorithms used commonly in electrical
components that built in many wireless and voice recognition devices.